Acquisition of Flow Cytometer System

A flow cytometer will be employed in projects by two major and two minor users. 1) It will be used to monitor quantitatively the progression of differentiation of sea urchin male germ line cells in culture. The large number of samples processed will make feasible the optimization of culture conditions and the evaluation of effects of hormones, growth factors, and cell-cell interactions in promoting production of sperm cell. 2) It will be used to characterize mechanisms which maintain lipid asymmetry in normal and sickled red blood cells, and to probe the resistance of cytotoxic T lymphocytes to lysis by their product perforin (involved in antigen-specific killing of target cells by the mammalian immune system) using the dye merocyanine 540, a fluorescent molecule sensitive to lipid asymmetry of live cells. The minor users will employ the instrument to 3) analyze expression of cell surface molecules controlled by cell type specific promoters in cellular slime molds to study their developmental regulation, and 4) analyze as preparation for sorting and biochemical analysis of populations of rod outer segment disks from the mammalian retina as they are processed and discarded with aging.